Mathematical Sciences: Southern California Geometric Anaylsis Seminar

9503433 Li The proposed conference is in the area of geometric analysis. A wide spectrum of topics in geometric analysis is covered: gauge theories, Riemannian geometry, symplectic geometry, evolution equations and curvature flows are some of the topics covered in the past by this series of conferences. This annual series of conferences has been supported by the National Science Foundation since 1991, and it is the only one of its kind serving the west coast. The organizers expect about 60-70 participants; a large fraction of the funds is to provide travel support for graduate students.